MCA: A Meta-analytic approach to resolving mechanisms of plant-soil-herbivore interactions

Plants and their associated soils are in a close bidirectional relationship, and this relationship is affected by organisms such as herbivores that consume plants. Feeding by herbivores may influence the numbers and species of plants present in the ecosystem. However, consistent relationships between feeding by herbivores does and the composition or functioning of the soil community have not yet been described. The resolution of this paradox is a fascinating ecological question because indirect effects among organisms are tricky to resolve, but it is also important from a human perspective due to the potential implications to soil properties. For example, changes in soil functioning can influence agricultural success or carbon storage for climate mitigation. In addition, human demographic patterns and shifts in land use have markedly changed the distribution of wild herbivores and livestock, making this a more urgent problem. Therefore, the need to define the role of herbivory on soils and their functioning is profound. This research will tease apart and define the effect of herbivory on soil community composition and functioning as it occurs across varied environments.

Interactions among herbivores, plants, and soils are driven by gradients of multi-variate factors, both biotic and abiotic, and establishing controlled and repeatable experiments to capture these factors is expensive and challenging. Modern and diverse data sets from prior manipulative and observational herbivore experiments are abundant. However, when considered in isolation, individual experiments typically reveal inconsistent and weak responses in the soil. This research will compile and analyze a large number of experimental and observational data sets, thus revealing the full continuum of biotic and abiotic influences of herbivores on the soil. Specifically, the methods will include a regression based and multi-variate meta-analytic approach. In so doing, the following research goals will be addressed: First, meta-analytic regression will capture non-linear or indirect effects of herbivory on soil functioning. Second, multivariate herbivore effects will be explored with respect to both abiotic environmental variables and community level interaction variables, i.e. nutrient flux via dung, trampling or seed dispersal. In partnership with a world expert in meta-analysis, this research will gather diverse data sets to resolve the most elusive mechanisms explaining the link between herbivory and soil ecosystem functioning. The outcome of this work will be a substantial and publicly available database in addition to student training and numerous scientific publications and presentations.